A Microfabricated Cell Sorter for Molecular Evolution

The overall goal of this SGER Proposal is to determine if it is feasible to construct an economical, microfabricated cell sorter for sorting large numbers of bacterial populations generated in "directed evolotion" experiments. An appropriate elastomeric material will be identified that minimizes the adherence of bacterial cells to the sorter surface. A sorting method (identifies and separates tagged cells) will be identified and the appropriate software developed. The viability of the bacterial cells in the apparatus will be determined. This normally major effort is facilitated by the head-start the Quake Laboratory (Applied Physics, Caltech) has with a similar design for sizing and sorting single DNA molecules based on their fluorescent properties.